Symplectic Topology of Hamiltonian Systems with Infinitely Many Periodic Orbits

Abstract

Award: DMS-0906204
Principal Investigator: Basak Gurel

This award is funded under the American Recovery and Reinvestment Act of
2009 (Public Law 111-5).

The main long-term objective of the proposed work is to examine the
reason for the existence of infinitely many periodic orbits for a
variety of Hamiltonian dynamical systems. The first part of the
proposal is comprised of several interconnected projects addressing
this question for certain classes of Hamiltonian diffeomorphisms and
also for specific Hamiltonian systems such as twisted geodesic
flows. The PI will tackle these problems by making use of methods from
symplectic topology including Floer homological techniques, spectral
invariants, Hamiltonian Ljusternik-Schnirelman theory, the Seidel
representation as well as methods from differential geometry such as
h-principles. Among more specific tools pertinent to this
investigation are local Floer homology, the mean index, the properties
of action and index spectra and of action and index gaps, and
geometric and dynamical properties of the symplectically degenerate
maxima. The techniques utilized by the PI also have applications
beyond establishing the existence of infinitely many periodic
orbits. In particular, the PI's approach to the projects in the second
part of the proposal draws heavily on one of her recent works on the
periodic orbits problem. The PI outlines a method of proving that the
diameter of the group of Hamiltonian diffeomorphisms is infinite for
many symplectic manifolds, including some new instances. Another group
of problems considered in this proposal concerns the symplectic
topology of coisotropic submanifolds and some of its applications.

Hamiltonian systems constitute a broad class of physical systems where
dissipative forces can be disregarded. For example, the planetary
motion in celestial mechanics and the motion of a charged particle in
a magnetic field are usually treated as Hamiltonian systems. One
general, but not universal, feature of such systems is that they tend
to have numerous periodic orbits. Corresponding to the cyclic motion,
this is the simplest dynamical phenomenon after equilibrium and an
investigation of periodic orbits of a system is crucial in
understanding its global behavior. For a broad class of Hamiltonian
systems, the number of periodic orbits is known to be infinite and this
is thought to be the case for many (but not all) Hamiltonian
systems. Yet, establishing the existence of periodic orbits often
requires advanced and powerful mathematical tools. The proposal
focuses on the existence problem for infinitely many periodic orbits of
Hamiltonian dynamical systems in a variety of settings and on
applications of the techniques used by the PI to attack this problem
to some other related questions. The projects in the last part of the
proposal concern a certain class of spaces which arise, for instance,
in the study of Hamiltonian systems with symmetries. The proposed work
is related to and has potential applications in mathematical physics,
and geometric and quantum mechanics.